Conference/Workshop - International Research on Advanced Composites in Construction (IRACC)

9521653 Naomi In July 1994, a national workshop addressing Research on Advanced Composites in Construction (RACC) was held in Washington, DC under NSF sponsorship. This workshop was a planned activity aimed at integrating specific research tasks dealing with characterization, manufacturing, testing procedures, standards, and analysis/design criteria relative to the use of advanced composites materials in construction. It is important that this type of activity be expanded to the international level to make government funding agencies aware of the needs and progress in this area of research and development, to seek new forms of international collaboration, to address international standardization and coding issues, and to allow researchers to review national priorities in light of international achievements. A conference/workshop on International Research on Advanced Composites in Construction will be held in Bologna, Italy, during the Spring of 1996 addressing the following five areas: non- prestressed reinforcement for concrete; prestressed reinforcement for concrete and cables; structural shapes; structural FRP systems; and repair systems. Technical experts from Europe, Japan, and the Americas will be invited to this activity. The U.S.> delegation will consists of ten researchers Central and South America will be represented by five researchers. Managers of national and international funding agencies will also be invited. Conference/workshop presentations and recommendation on the program will be collected in a document for distribution to universities, professional societies, industry, and government. ***